Morphometrics and Anthropology at the University of Colorado at Denver

Anthropology (81) Pedagogical studies consistently show that hands-on data collection and analysis leads to greater understanding of the methods and logic of science. At the same time, computer-based data acquisition and analysis systems have grown more accessible for use in classroom instruction. Following recommendations for science education in anthropology (Bender and Smith, "Teaching Archaeology in the 21rst Century," Society for American Archaeology, 2000), and building on similar programs at other institutions, this project combines these recent trends by integrating morphometric equipment and exercises into undergraduate instruction. Using these resources, students at all levels of instruction explore shape variation in anatomy and material culture to identify patterns related to function, structure and development. Morphometric workstations consisting of computers and associated measurement equipment allow students to collect, analyze, and present data, improving their understanding of the scientific process while developing skills in problem solving and professional presentation. The success of the program is being measured using a number of summative, formative, and independent evaluation instruments. Pre- and post-instruction examinations are used to evaluate student understanding and retention of basic principles of science and anthropology, and the SALGains instrument is being used to measure student self-reported learning gains and satisfaction with the learning environment. The primary goal of this project is to introduce students to central issues in anthropology through the use of contemporary methods of data collection, analysis and presentation. The broad goals are to contribute to a scientifically literate populace and to produce future generations of competent anthropological professionals.